Topics in Noncommutative Geometry, Quantization and Dynamics

Abstract
Klimek

The principal investigator proposes to continue and expand in new
directions an ongoing program of studying quantized spaces and dynamical
systems on such spaces by means of the techniques of operator algebras and
non-commutative differential geometry. The ultimate goals of the program
are:
* To understand the mathematics of quantization of systems (involving
both finitely and infinitely many degrees of freedom) with complicated
dynamics;
* To study the non-commutative geometric principles underlying the physics
of the microworld, and in particular possible implications for quantum
chaos;
* To explore new mathematical phenomena relating operator theory to other
fields of mathematics.

Non-commutative geometry is a new direction of mathematics created
in the eighties. Its prime objective is to study objects, called
non-commutative spaces or manifolds, which are not ordinary geometric
objects but still have a geometric flavor. Examples of structures
of this sort arise naturally e.g. in physical theories of subatomic
phenomena. Methods of non-commutative geometry became a powerful tool
in studying various problems in modern analysis and understanding the
fundamentals of the physics of the microworld. It is proposed to
study examples of non-commutative manifolds and dynamical systems on them
with emphasis put on applications to quantum physics and operator theory.